SBIR Phase II: Fiber-optic System for Fast Non-contact Measurements of Optical Structure of Human eye

This Small Business Innovation Research (SBIR) Phase II project is aimed at developing a high speed and high sensitivity system for measuring optical dimensions of human eye, such as the total axial length, corneal thickness and the location and thickness of the crystalline lens, in a non-contact manner using infrared light, invisible to the eye. This task is accomplished by improving the existing technique of time domain low-coherence interferometry. In case of a live patient, who cannot be immobilized for steady measurements, speed and sensitivity of the measurements are especially important to achieve high accuracy and precision.

The broader impacts of this research are aimed at benefiting large part of the population that suffers from cataract and other vision problems. The U.S. population of over 65 years old expected to increase to over 70 million in 2030. Therefore, there is a dramatic need for tools to treat the wave of eye diseases and problems inherent to such population. Information on the structure of the eye is required in eye surgeries, including those that deal with replacing the crystalline lenses affected by cataract. The proposed research will result in an array of critical tools aimed at mapping out the eye, for medical research and for treatment of the diseases.